Gelfand Pairs and Automorphic L-functions

The goal of the proposal is to study certain integrals of automorphic
forms on a reductive group G. The integrals are over a subgroup H of G
which is large in G, in the sense that over the algebraic closure of the
ground-field, the group H has an open orbit in the flag variety of G.
The integrals may be thought of being periods attached to automorphic
forms and turn out to be, in all cases, interesting numbers. In
particular, in many cases, the square of the periods are conjectured to be
the central values of automorphic L-functions. Examples of such a
phenomenon are results of Waldspurger and others and conjectures of
Gross-Prasad. In other cases, the forms for which the integrals are
non-zero are interesting in their own right. The investigator studies
theses periods and their properties by using a variant of the trace
formula, called the relative trace formula.

The proposal focuses on one aspect of the so called Langlands program. The
goal of the program is to study the automorphic objects (called
automorphic representations); they can be described in terms of the
spectrum of certain operators (generalized Fourier analysis). The data
attached to those objects is encoded in a family of functions of one
complex variable, the automorphic L-functions. The conjectured properties
of these functions contain all possible information on the automorphic
representations. Moreover, other L-functions coming from geometry or
Diophantine problems should be automorphic L-functions. The value of the
automorphic L-functions at a particular point (central value) is a
especially interesting number which is difficult to compute. In many
cases, it is conjectured that this number is non-negative and yet this is
cannot be established directly. The investigator is using a new method
(the relative trace formula) to obtain information about some of these
numbers by representing them as square of integrals. This a novel way to
connect the automorphic L-functions and the automorphic representations.